Wallops Flight Facility Support for Second Cubesat-based Science Misson

This is a transfer of funds to the NASA Goddard Space Flight Center Wallops Flight Facility (NASA WFF) for management and engineering services in support of NSF-sponsored satellite mission to be launched by the National Reconnaissance Office in August 2010. The NSF sponsored nano-satellite is a "triple (3U) cubesat" that will utilize the Poly-Picosat Orbital Deployer (P-POD) system. The purpose of the NSF nano-satellite mission is an atmospheric science experiment aimed at investigating Terrestrial Gamma Ray Flashes. NASA WFF will provide technical assistance to NSF for the preparation, documentation, and test of the cubesat system. WFF will also work with the launch sponsor, and launch provider to provide necessary assurances that the Cubesat spacecraft will not adversely interfere with the primary spacecraft, either technically or via schedule delays.